Promoting Expertise in Computational Cognitive Science

This award is to support tutorials at the intersection of artificial intelligence and cognitive psychology at the 2010 meeting of the Cognitive Science Society. Encouraging computational sophistication in the next generation of cognitive scientists, and encouraging interdisciplinarity in researchers at all career stages, are key elements of the training mission of the Cognitive Science Society. Access to information presented at the conference will also be provided through Web broadcasts of the symposia and a special issue of the Society journal with an emphasis on the teaching mission of workshop attendees.